International Linkage Program for the Ultrasonic Modeling of Complex Materials

This project is for the development of a cooperative research and educational program involving the Industry/University Cooperative Research Center for Nondestructive Evaluation at Iowa State University and the SAFE Research Center at Sugkyunkwan University, Suwon, Korea. Both Centers have on-going activities in the ultrasonic nondestructive evaluation of complex materials, such as composites, which are inherently difficult materials to inspect with ultrasound because of their complicated material behavior. It is planned to join these two research programs together in a cooperative, international effort to develop computer models of the ultrasonic inspection of complex materials.